Integration of Laser Experiments Into the Undergaduate Chemistry and Physics Curriculum

A chemistry/physics laser laboratory is under development. Included in this laboratory are a nitrogen pumped dye laser, a monochromator, a digital storage oscilloscope, a photodetection system, and a gated integrator. Laboratory experiences for the undergraduate physics and chemistry curricula support courses from introductory physics to advanced optics in physics and in chemistry, courses from instrumental analysis to computational chemistry. Through inquiry-based learning, students will explore laser technology applications in their field of study. Typical activities include the examination of excited state lifetimes, phosphorescence, inelastic scattering, and selection rules for one and two photon spectroscopy. Planned laboratory experiments are adaptations of those presented at two NSF workshops: "Advanced Undergraduate Experiments Using Lasers" and "Recent Advances in Physical Chemistry".